Linear Systems on Higher Dimensional Varieties

The principal investigator proposes to study linear systems of
higher dimensional varieties. In particular, he plans to apply
the methods of higher dimensional geometry to study some basic
questions from different areas of algebraic geometry such as
birational geometry, commutative algebra, computational
complexity, geometry of algebraic curves, jet schemes of singular
varieties and geometry of big divisors. He has already obtained
results in the following areas, (1) effective results on
Nullstellensatz and syzygies of ideals, (2) singularities of
theta divisors and birational geometry of irregular varieties,
(3) Fujita's problems on adjoint linear systems and (4) studying
symbolic power of an ideal. But there are still many fundamental
problems remain unsolved. He plans to develop new methods and
techniques to study them.

Algebraic geometry is one of the oldest areas in mathematics and
it studies geometric, algebraic and arithmetic properties of
geometric objects defined by algebraic equations. Algebraic
geoemtry also has applications to mathematical physics and
cryptography. In this project, the principal investigator
develops new techniques to study algebra, computational
complexity and properties of higher dimensional geometric
objects.